Exploring Just-In-Time

This research seeks to better comprehend Just-In-Time in order to broaden its usage to a wider variety of manufacturing environments. The topics to be examined include: (1) analyzing multi-model production in a stochastic environment, (2) extending Just-In-Time to environments with greater variability, and (3) investigating the impact of set up reduction on inventory, quality and capacity.